Analysis and Applications of the Discontinuous Galerkin Method

In its broad outlines, the research program of the P.I. aims at the
development, analysis and computer implementation of numerical methods designed
to approximate the solutions of some partial differential equations (pde's)
that have important applications in the fields of engineering and physics. The
Discontinuous Galerkin method constitutes the core methodology of this
effort. The ultimate goal of the research is to make full use of this method
to develop convergent and efficient adaptive methods designed to reduce the
run time of the algorithms by finding optimal or quasi-optimal meshes. Other
efforts will be directed towards the development of domain decomposition and
multigrid algorithm for the fast solution of the resulting systems of equations
on single as well as multiprocessor computers.
The P.I. will develop methods and adaptive algorithms for second and fourth
order elliptic problems, the incompressible Navier-Stokes equations and the
Cahn-Hilliard equations and use them to simulate phenomena
modeled by these equations. Adaptive methods will also be used to simulate
finite-time blowup of nonlinear evolution equations. Some areas of
applications are chemical reactions where the geometry of the domain plays an
important role and the simulation of tumor growth.

Scientific computing is playing an increasingly important role in the progress
of Science as a cost effective alternative to "real life" experiments which
could be very costly, say wind tunnel experiments in aircraft design, or even
impossible to duplicate, such as supernova explosions and other astrophysical
phenomena. It is worth mention that numerical simulations are playing a crucial
role in the identification of the potential effects of global warming. The U.S.
government, through its various funding agencies, has made important investments
by the creation of supercomputing centers equipped with the latest
generation of massively parallel computers. To extract the full power of these
machines, with some having tens of thousands of individual processors, efficient
and "scalable" methods and algorithms must be developed to keep pace with the
advances in hardware. Indeed, most current algorithms fall short of harnessing
the full power of these computers especially when the number of processors
exceeds a few thousand. The Discontinuous Galerkin method is a recently
introduced methodology with great potential and wide applicability. Its many
attributes include flexibility, ability to handle complex geometries and
scalability. Further understanding of this approach and the development of
efficient and parallel computer codes will have a positive impact on the
ever increasing areas of Science that make essential use of numerical
simulations. Finally, two graduate students are actively participating in this
project as partial fulfillment of their Ph.D. degree requirements. This will
achieve another goal of this project which is to contribute to the training of
the next generation of researchers.